Topics in Theoretical Physics

The proposal is to look at various problems at the quark gluon interface with nuclear physics. This includes the deuteron electromagnetic form factor at high momentum transfer, the nucleon-delta transition form factor at all momentum transfers, and the distribution amplified of gluons in a glueball. Electrodisintegration of heavy ions, and the effect of quark clusters in hadronization in deep inelastic scattering from nuclei will also be explored.